CT-ISG: Reconciling Accountability with Anonymity in P2P Systems

Anna Lysyanskaya
Brown University
CT-ISG: Reconciling Accountability with Anonymity in Peer-to-Peer Systems
0627553
Panel: P060979

Abstract

This project builds peer-to-peer systems in which peers are motivated
to honestly contribute to the system, yet remain anonymous. Anonymous
electronic cash (e-cash) is used as a tracking mechanism to allow for
accountability without sacrificing privacy.

E-cash matches the untraceability properties of physical coins: the
same bank is responsible for dispensing e-cash to buyers, and for
later accepting it for deposit from sellers, and yet it cannot trace
how buyers spent their money.

As a result, e-cash is ideally suited for serving as a currency
in p2p systems: privacy is a key feature of many p2p applications,
such as onion routing and shared backup.

This project combines systems-building and cryptography work. Our
starting point is compact e-cash, a recent invention of one of the
PIs, which improves upon the time and space requirements of previous
schemes. In addition, primitives that allow sellers to quickly prove
properties of data that they offer for sale, without revealing the
data itself are being developed.

These cryptographic innovations are being deployed in real distributed
systems, including the e-cash bank and p2p applications such as onion
routing, shared downloads, data backup, and distributed computation.
Innovations in these systems surround the development of contracts
that define the interactions of peers in these systems. Contracts
ensure that buyers and sellers act honestly.

This project advances our understanding of distributed system with
autonomous members. These systems require incentives for peers to
render services, yet these incentives must be provided without
compromising participant privacy.